Conference on Non-standard Indoor Environments for Naturalistic Behavioral Research, Port Jefferson, New York, December 1-5, 1987

Researchers often need to complement field and laboratory data with observations of behavior in strategically designed indoor naturalistic facilities, which deviate substantially from those envisioned in Federal standards for research-animal husbandry. This need has repeatedly brought regulatory agencies, university administrators, and researchers into conflict. Clarification of the complex web of responsibilities and obligations shouldered by regulatory personnel and university administrators will be necessary if the design and operation of indoor naturalistic facilities is to be sustained as a viable component of behavioral research. Closer contact with the veterinary, zoo, and humane communities can also help researchers anticipate problems, improve plans, and advocate their research requirements more effectively. This conference will bring zoo and research veterinarians, university administrators, regulatory agents, and humane-society professionals together with scientists involved in behavioral research. The proceedings will involve (1) inspection and discussion of extensive new indoor naturalistic habitats of the New York Zoological Park, (2) panel discussion of four hypothetical facilities that might be constructed on a university campus, and (3) presentation of 15 technical papers on the strategic use of indoor habitats; the ways in which they often deviate from Federal standards; design and maintenance considerations related to light, air quality, and substrates; population sizes; co-habitation of multiple species; pests; hygiene, and security. Perspectives from the humane and animal-rights communities will also be presented.